Educational Postdoctoral Fellowship Program in Mathematics

The Cleveland Collaborative for Mathematics Education has developed a three-year program to support four integrated education and research postdoctoral fellowships in mathematics. This initiative brings young research mathematicians into direct contact with elementary and secondary mathematics teachers, students and parents of the Cleveland Public Schools. The postdoctoral fellows do research under the auspices of one of the following institutions of higher education participating in the Collaborative: Case Western Reserve University, Cleveland State University, John Carroll University; they work under supervision of the Collaborative on education projects in the Cleveland City Schools.